Research on Hyperbolic Equations and Scattering Theory

The proposed research of Antonio Sa Barreto is divided in three main parts.
In the first topic, the investigator intends to study the
existence of resonances for second order self-adjoint perturbations of the
Euclidean Laplacian. Secondly he intends to continue his research on
Scattering theory for asymptotically hyperbolic
manifolds.
Particular examples of such manifolds are the hyperbolic space and its
quotients
by certain discrete groups of linear fractional transformations. The methods
used here can also be applied to study scattering for perturbations of the
De Sitter-Schwarzschild model of black holes. The principal investigator
will study the distributions of resonances and
the connection between the resonances and the trace of the wave group.
In the third topic, the investigator proposes to study what type of
information can be obtained from the scattering matrix in several
different situations.
He proposes to consider the question of existence
of transparent metric perturbations of the Euclidean metric, i.e those that
are not determined by the scattering
matrix at a fixed energy. He also intends to consider the question of
determination of a non-compactly supported metric perturbation, that have
sufficient decay at infinity, from the
knowledge of the scattering matrix at all energies.
The same questions can be posed in non-Euclidean settings, as for example,
for metric and potentials defined on asymptotically hyperbolic manifolds.
As metioned above, this is in some sense the case of
the De Sitter-Schwarzschild model of black holes. One would like to know if
a time independent perturbation of this model by a metric and potential can be
recovered from the scattering matrix at all energies.

The general idea of the first project in this proposal is to study, in
different situations, the effects that certain
perturbations have on a medium. For example how certain
disturbances will affect the propagation of light or sound. Resonances
can be seen as a damping effect the perturbation has on the propagation of
waves. The third project concerns the reciprocal of this question, i.e
knowing the effects that an unknown perturbation has on a medium, determine
the the perturbation. In the second project the investigator will study
analogous questions for the case where the medium is ``asymptotically
hyperbolic''. A closely related and important example is the
De Sitter-Schwarzschild model of black holes.